Problem Solving Environments and Methods for the Developmentof PDE Based Applications on Parallel Machines

This research project has three technical thrusts: 1. The design of knowledge based PSEs (Problem Solving Environments) for PDE (Partial Differential Equation) based applications. 2. The development of a software engineering framework for solving PDE problems quickly and efficiently on a network of parallel machines with multimedia front-ends. 3. The development of an infrastructure of scalable algorithms to support the solution of certain PDEs on a variety of massively parallel machines. PDEs are the fundamental mathematical tools for describing the physical behavior of many application processes in science and engineering. Most of the existing PDE software systems deal primarily with the solution of specific classes of PDE problems on sequential or vector machines. This project will study the design and implementation of the software engineering platform, ParPDElab, for generating PSEs and the related algorithmic infrastructure for any class of PDE problems and PDE based applications. The hardware facility assumed consists of a network of parallel processors with different architectures and software environments. The primary design goal in ParPDElab is to create a problem solving and programming environment that shifts the emphasis from programming and hardware issues to the analysis of science and engineering issues. This environment will be almost machine independent and will attempt to unify some of the well known parallel computational paradigms. It will be knowledge based in the sense that it will be aware of its infrastructure and the compatibility requirements of the atomic elements involved. Furthermore, it will be capable of making some decisions for the user. The system will be open ended and the easy interfacing of foreign systems will be one of the primary considerations in the design of ParPDElab. To achieve the above design objectives, one must address the issue of integration of numeric, symbolic, multimedia, and AI processing. This integration will be attempted by utilizing existing technologies while developing some new methodologies for the future.